Random Utility 2000

Random Utility 2000 (RU 2000) is a sequence of events with the common goal of assessing the current state and defining directions for future research in random utility theory and its applications. The first event will consist of two days of tutorial sessions in which world-leading scholars will present the fundamentals of probabilistic choice modeling. The tutorials will be followed by the main event: a six day workshop and conference where establisted scholars and junior participants will jointly carve out a vision statement for random utility and probabilistic choice modeling in the new millenium. All events will be held at the Fuqua School of Business, Duke University, in the summer 2000.

The key objectives of the project are:

1) to bring together world-leading scholars from diverse backgrounds who work on topics that are relevant and related to probabilistic models of choice and measurement,

2) to offer a unique opportunity for young, promising scholars to interact with each other and with senior scholars and familiarize themselves with the state of the art in random utility theory and probabilistic measurement theory,

3) to provide a forum for brain-storming over the key open problems and issues, with the goal of collectively generating a programmatic list of the most important unresolved questions and most promising avenues of research.